Simulations of Strongly Correlated Materials

Computational simulations and research will be conducted on strongly correlated electronic systems. Examples of these systems include high temperature superconductors, heavy Fermion materials and magnetic materials. Quantum Monte Carlo techniques will be combined with methods of statistical inference to allow us to simulate the dynamical response of these systems. In addition, methods which combine quantum Monte Carlo and analytical techniques will be employed. One objective of the research is to calculate experimentally and theoretically relevant properties of model systems more accurately than heretofore possible. Another objective is to explore the non-perturbative regions of these models in order to predict new physical phenomena. %%% Strongly correlated many-body systems such as high temperature superconductors and magnetic metals are not amenable to the usual theoretical techniques such as perturbation theory. Consequently, because of the absence of analytical methods computational simulations become increasingly important to understand the physics involved with these systems. This grant will conduct simulations using a variety of techniques in order to assess the techniques and to gain insight into the underlying physics for sample strongly correlated systems.